Post Doctoral: The Cybermouse Murine Database with Simulation Capacity

9404655, PI-Sieburg: This award is for a CISE postdoctoral associate in Experimental Science. The associate, Stella Veretnix, will be working on computational biology using simulation and database techniques.